Modernization of an Experimental-Biochemistry Laboratory

The University of Wisconsin - La Crosse is equipping their biochemistry laboratory for undergraduates to isolate, purify and characterize an enzyme from previously uninvestigated sources. The students experience the excitement of scientific discovery within a regularly scheduled course by using standardized protocols.